Cooperative NSF/CRCD and ASEE/ERM Dissemination Services

9714948 Genalo Abstract This award provides support for three years to Dr. Lawrence J. Genalo of the Department of Materials Science and Engineering, Iowa State University to serve as coordinator of a joint American Society for Engineering Education (ASEE)/Educational Research and Methods (ERM) Division and NSF project to provide a highly visible outlet for the dissemination of NSF/Combined Research-Curriculum Development (CRCD) Program results. Poster sessions sponsored by ERM will be held at the ASEE Annual Meetings in 1998, 1999, and 2000. At these sessions CRCD grantees will present the results of their projects in poster session format as well as publishing papers on their work in the ASEE proceedings.